The Establishment of a High Performance Connection to the vBNS for Old Dominion University

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for an OC-3 ATM connection to the Very High Performance Backbone Network Service (vBNS). Applications include a Grand Challenge project, "A Numerical Laboratory for Multi-model, Multi-domain Computational Methods in Aerodynamics and Acoustics;" Chesapeake Bay Virtual Environment visual model; Interactive Remote Instruction Project; and the Distributed Object Computational Testbed. Collaborating institutions include Argonne National Laboratory, National Center for Supercomputer Applications, University of California-Berkeley, University of Illinois-Chicago, San Diego Supercomputer Center, Cal Tech, and Cray Research, as well as several other Virginia schools.